Collaborative Research: CCF: AF: Medium: Validated Soft Approaches to Parametric ODE Solving

Many physical, biological, and social processes are modeled as one or
more ordinary differential equations (ODEs) with unknown parameters.
Usually there are three fundamental tasks in working with such ODEs: (1)
checking whether the structure of the ODE even allows these parameters to
be estimated in principle, (2) if it does, numerically estimating the
parameters, and (3) solving ODEs with the estimated values of the
parameters. Thus, it is crucial to develop tools for the three tasks. Due
to its importance, there has been extensive research on developing
necessary mathematical theories, algorithms and software tools, with
tremendous progress/achievements. Broadly, there have been two different
approaches: symbolic and numeric, each with its own objective, theory,
algorithms, and software tools. Roughly put, the symbolic approaches
prioritize correctness over efficiency, while the numeric approaches
prioritize efficiency over correctness. Naturally, they developed (often
dramatically) different sets of theories and algorithms. Consequently,
there are currently two kinds of software tools: one correct but often
inefficient, the other efficient but often incorrect. Hence, there is an
utmost need and thus a challenge: develop a new approach (theory,
algorithms) that can yield software tools that are both efficient and
correct.

In this project, the investigators propose a novel approach that has a
potential to meet the challenges of efficiency and correctness for
parametric ODEs. The approach may be described by the key phrase
``validated and soft approach''. One may try to develop validated
(correct) algorithms in two ways. (1) Use a symbolic approach. It always
produces correct output, but is inefficient. (2) Use a numerical interval
approach with modified notion of correctness, e.g., specifying a priori
error bounds. This allows the use of approximate arithmetic, providing
efficiency, but this is only true for non-singular ODEs. For singular
problems, there is an implicit ``Zero Problem'' that does not yield to
numerical approximations, and may not even be Turing-computable. The soft
approach overcomes this limitation by allowing indeterminacy for certain
inputs: informally, inputs on the verge of singularity are allowed to have
indeterminate outputs. The resulting soft formulations of the problems
allow one to exploit and combine strengths of both symbolic and numeric
approaches, resulting in algorithms that are correct (in the modified
sense) and practical (efficient). The investigators' preliminary research
indicates that the validated soft approach is quite promising.